Predicting Physical Properties of Fluid-Containing Rocks from Percolation Model Results

0409279
Wang
The physics of displacement of water by an invading liquid or gas is an important
geologic and engineering process. Examples include the migration of oil or gas into
brine-saturated rock or remediation of contaminated aquifers by injection of air. The
distribution of the invading fluid can include intricate fingering due to the inherent
randomness of the pore structure and its influence on capillary forces. A successful
method to simulate the invading air is through a pore-scale, modified invasion
percolation model in which the rock's void space is represented by a statistical
distribution of pore and throat sizes. Each pore is connected to several throats. The
throat on the air-water interface that is invaded is the one at which the driving potential
summing gravity, capillary, and viscous forces is greatest. The scientific goal of this
project is to connect the distribution of the fluid phases obtained from the percolation
model to predict the elastic and electrical properties of the bulk rock formation. The
innovation proposed is to use a process-based quantification of fluid saturation at the pore
scale as the basis for predicting physical properties that are extremely sensitive to the
fluid distribution. These predictions are important for inferring the fluid saturations from
geophysical measurements. The working hypothesis is that the size distribution of the
defending water clusters is critical to the bulk elastic behavior. Small, isolated water
clusters behave in an elastically soft manner because the water is able to flow into nearby
air-filled voids. New laboratory measurements of elastic wave velocities during
evaporative drying are proposed. They and recent electrical resistivity measurements
during evaporative drying conducted at Louisiana State University will be used to
calibrate and test the modeling process.
Broader Impacts
This research is expected have applications in exploring hydrocarbon reservoirs and in
monitoring remediation of contaminated aquifers. This research will provide key rock
laboratory measurements and modeling tools to simulate the displacement of water by air
or gas and then predict the changes in geophysical properties. New data collected on
changes of elastic wave velocities during evaporative drying will be useful to other
researchers testing their models. The research results will be disseminated through
publications and oral presentations. The computer codes that will be developed as part of
the research will be useful to researchers in industry and will be made available on the
internet.